A Fluid Simulation Methodology for Complex, Large Scale Networks

Researchers from the University of Massachusetts at Amherst and Dartmouth
College jointly propose to perform fundamental research on developing a
fluid simulation methodology that will enable efficient, multi-time-scale,
hierarchical performance modeling of complex networks such as the next
generation Internet. The proposed effort will allow networks to be more
easily modeled and their performance to be evaluated significantly faster;
it will make it possible to model significantly larger networks than before
and to allow the tradeoffs between modeling accuracy and solution speed to
be quantitatively assessed. The novel features of the proposed fluid
modeling methodology include:
>
>Modeling at multiple time-scales. The proposed unified modeling framework
provides for modeling system behavior at different time-scales, allowing for
significant savings in simulation execution times when modeling at coarser
time-scales. Development of formal means for quantitatively characterizing
the potential loss of modeling accuracy when fast-time-scale behavior is
modeled at a coarser time-scale is an important part of the framework.
>
>Hierarchical fluid modeling. The PIs demonstrate that multi-level
(hierarchical) fluid modeling allows for abstraction of a potentially
complex component of the simulation by a simpler model and substitution of
this simpler model into the larger simulation. The PIs also develop
rigorous techniques that can automatically identify when such substitution
can be performed without significant loss of modeling accuracy.
>
>Efficiency in modeling complex systems. The PIs demonstrate that in
addition to providing for multi-time-scale, multi-level modeling, fluid
simulation can be significantly more efficient than traditional discrete
event simulation. The PIs' initial work shows a 50-fold speedup in a
uniprocessor fluid simulation speed over the discrete-event counterpart with
little loss in modeling accuracy.
>
>Applicability in many problem domains. The PIs demonstrate that fluid
simulation methodologies are ``plug and play'' in the sense that they can be
applied equally well to the current Internet protocol suite, future
real-time and multicast protocols, or ATM networks.
>